Comparative Studies of Signal Structure and Function

This research project focuses on two major questions: (1) Do animal signals convey specific information about objects and events in the environment? (Are they representational?) and (2) Is the production of signals reflexive, or do animals have the ability to emit or withhold signals depending on the availability of an appropriate receiver? (Is there an intent to communicate?). Dr. Marler's experimental approach is based on the discovery that birds will respond to videotapes, both of stimuli that elicit signals, such as images of hawks, and of other birds, as an acceptable audience for signal production. Domestic chickens have a large repertoire of vocal signals, including different calls associated with the discovery of food and with sighting a predator such as a hawk. Dr. Marler will manipulate the form of video images to explore what characteristics a bird image must possess to qualify as an acceptable audience (size, color, parts of the body, behavior), and to determine the relative contributions of visual and auditory audience properties. Other experiments will pursue indications that the optimal audience may vary depending on the kind of information that signals convey (aerial predators versus ground predators, optimal or sub-optimal food items, etc.). These studies will throw new light on what the communicative signals of animals actually mean, and the extent to which they share some of the important characteristics of human language.